Design as an Introduction to Computer Science in High School

Computer programming has gained great popularity in elementary and secondary education because it has been as a powerful tool by which children can develop general problem solving skills and learn fundamental concepts in mathematics, physics, and logistics, as well acquiring foundational understanding of computer science. Unfortunately, research assessing these claims has found that students fail to attain sufficient programming competence to serve as a basis for the development of general problem solving skills. In addition, both research and the practical experiences of expert software designers have suggested that the analysis of the problem domain and the design of an overall plan of the software are more central to the development of software than is learning to code. Students in programming courses that emphasize design learn more than students in other courses, but they still show little progress toward general problem solving. Recently developed technology has simplified the relation between the analysis and design phase, making it feasible to teach students software design without first teaching them how to code. This project proposes to teach design without coding and to evaluate critically the efficacy of such an approach. If successful, this project will serve as a model that can be developed both for introductory computer science courses and for computer literacy courses.